GeoCollaborative Crisis Management(GCCM): Building better systems through advanced technology and deep understanding of technology-enabled group work

0306845
Alan M .MacEachren
Pennsylvania State University

GeoCollaborative Crisis Management: Building Better Systems Through Advanced Technology and Deep Understanding of Technology-Enabled Group Work

This grant will bring group work and collaborative technologies (dialogue-enabled, distributed) into the area of crisis management and emergency response. Government partners include the Port Authority of New York, NSAS, the Florida Department of Community Affairs, the Pennsylvania Department of Environmental Protection, the National Imaging and Mapping Agency, the Federal Geographic Data Committee, the USGS, EPA, and the Air Force. There is also a commitment from a user interface company, Advanced Interfaces, to provide free software and to support some of the project's research staff.

Most commercial Geographic Information systems do not include collaborative technologies, nor an understanding of how emergency responders need to collaborate; this research should push the frontier in both directions. A strong component of training, outreach, and education are also included.